Backstepping Control of Electric Motors with Applications to Manufacturing Systems

WPCD 2 B V P Z Courier 10cpi ? x x x , k x 6 X @ 8 ; X @ HP LaserJet Series II HPLASEII.PRS x @ , t 0 OpX @ 2 2 B #| x